Fast Numerical Operations on Implicit Curves and Surfaces

Strain
0209617
Robust global implicit representations of curves and
surfaces simplify geometric operations such as evolving,
offsetting and intersecting, while requiring accurate contouring
and efficient implicitization techniques. The investigator
focuses on fast new algorithms for the three key issues of
implicit representations:
1. Fast accurate multiresolution methods that extract
piecewise-smooth contours with tightly controlled geometry. These
methods alternate between global topology resolution and local
differential-algebraic boundary value problems, and solve
industrial problems ranging from machine tooling to horizon
finding.
2. Efficient implicitization methods that build a
distributed implicit representation from given curves or
surfaces. These methods, which invert contouring, are essential
to modeling moving material interfaces such as the solid-liquid
interface in melt growth of silicon crystals.
3. Fast stable deferred correction methods for the accurate
solution of ordinary and partial differential-algebraic initial
and boundary value problems that control local geometry.
Differential-algebraic problems occur widely in engineering, and
challenge existing numerical methods. For example, automated
vehicle piloting requires real-time solution of differential
systems with constraints that keep the tires on the road.
Computer models of complex interlocking physical objects
dominate technological processes ranging from semiconductor
etching to surgery planning, from computer animation to
computer-controlled machine tooling. Key steps in these processes
involve operations such as evolving, navigating, intersecting and
blending on these objects. The investigator and his students are
developing efficient new computational tools for simulating these
operations in robust user-friendly ways. This highly
interdisciplinary enterprise combines mathematics and computer
science to benefit scientific endeavors ranging from cartography
to crystallography. The research objectives intertwine with an
interdisciplinary educational program, training future scientists
and engineers through web-enabled courses,
math/science/engineering seminars, and individual student
research mentoring.